Engineering Research Equipment: High Pressure Technology inNoncatalytic Reaction Engineering Problems

This equipment grant is for the purchase of a high volume, high temperature, medium pressure (200 atm) unit in which the PI will produce advanced ceramic materials. Simultaneously, General Electric is donating several small volume, high temperature, high pressure (80,000 atm) units to this research group thus establishing a viable core of equipment for the study of optimal reaction conditions needed for the manufacture of these materials. SUNY-Buffalo is providing additional space to the PI to enhance the overall effort and make this a world-class experimental facility. Advanced ceramics are differentiated from traditional ceramics by the specialized properties they posses as well as by the sophisticated processing they require. Some examples of advanced ceramic materials are silicon nitride (Si3N4), silicon carbide (SiC) and aluminum nitride (AlN) and they might have many uses for example as heat - and wear-resistant parts to electronic and optical devices. The PI has developed a new concept for high-temperature, high-pressure, self-propagating simultaneous synthesis and sintering in a single reactor in a very short period of time utilizing the liberation of heat by the strongly exothermic reactions involved. He is also looking at a new concept for bonding between different ceramic materials or ceramics and metals, specifically bonding silicon nitride, aluminum oxide and ceramic materials to molybdenum and stainless steel. This specific apparatus will be used for samples of larger dimensions (e.g. 6" x 6" x 2") such as welding of TiB2 and SiC tubes, welding to Mo sheets, combustion of Si powder in N2, etc.